Biocomplexity--Incubation Activity: Complex Systems from Physics to Biology

This is a Biocomplexity-Incubation Activity Award in the area of Complex Systems. Complexly organized systems constitute a vital frontier that crosses virtually all boundaries of scientific domains. Progress in exploring this realm will require a multi-disciplinary, multi-form approach, involving investigators from a range of disciplines. The Complex Systems Group at Lehigh has formed around the central issues of multi-scale and multilevel dynamics, emergence, self-organization, and cross-level causation. This award will provide resources to nurture this Group and to assist in the development of a full Biocomplexity proposal.